Cooperation and Conflict in Anarchic International Systems

Much of the contemporary public debate over foreign policy reflects a more academic debate over the sources of stability and security in international affairs. Some persons contend that only a balance of power can ensure stability and state sovereignty, whereas others see the complex interdependencies of today's world economy and its associate international institutions as a substitute for balance of power. Unfortunately, although the debate offers deep insights and raises fundamental questions into the nature of international systems, it also offers the confusion that accompanies imprecisely formulated concepts and an imperfect application of subsidiary ideas. In this research the investigators use a branch of the decision sciences called game theory to model anarchic international systems and to resolve the debate by restating it in a more explicit and deductive context. The researchers begin by arguing that the traditional notion of collective security corresponds to the system envisioned by neoliberals, and then use their model of the international system to differentiate between balance of power and collective security in terms of the strategies that characterize the foreign policies of countries. The investigators then establish that both balance of power and collective security can correspond to equilibiria in their model. Initial explorations of this model reveal that a balance of power does not guarantee every country's security, so in it countries must be vigilant about their relative share of resources. A collective security equilibrium, on the other hand, ensures everyone's sovereignty, and thereby allows absolute resource maximization. Unlike a balance of power equilibrium, however, a collective security equilibrium is not strong and is not necessarily stable or attractive. Thus, the institutional structures facilitating the realization of mutual gains from the variety of cooperative "subgames" characterizing the world economy play a critical role in the survivability of a collective security arrangement. An additional feature of this model is that it allows the researchers to explore the circumstances under which states might voluntarily relinquish their sovereignty to a more-encompassing authority. The classical example of this process is, in fact, the formation of the American Republic, whereas a more contemporary example is the evolving integration of Western Europe. Thus, the model developed by these researchers allows an uncovering of the fundamental sources of stability in international affairs and also allows them to generalize about the processes by which states are formed.